Presidential Young Investigator Award: Diesel Engine Combustion and Emissions

This is a long-term investigation of the effect of variation in fuel properties on the emissions and performance of single- cylinder and multicylinder diesel engines. In particular, the mutagenic activity of the organic material found in diesel soot will be studied. A variety of operating conditions will be tested in a high temperature, high pressure turbulent flow combustor. The cooperation of a leading US engine manufacturer has been established. The data base to be collected from these experiments will allow for the design of efficient and non-noxious diesel engines. It will also broaden the current knowledge of fuel properties for a new range of chemicals and operating conditions. The understanding of soot generation is of particular interest to many other forms of combustion as well (fires, jet engines ...).